RAPID: Waterborne Elizabethkingia disinfection studies in response to ongoing U.S. outbreak

1700604
Mayer

There is an ongoing outbreak in the U.S caused by Elizabethkingia bacteria. Elizabethkingia is a ubiquitous group of bacteria whose presence in soil and water ordinarily pose little risk to human health. However, the current outbreak includes 63 confirmed cases, and has been associated with 18 confirmed fatalities since November 2015. This opportunistic human pathogen is particularly alarming because it tends to exhibit a high degree of antibiotic resistance and mortality. Given the emergence of this pathogen and the ongoing outbreak, it is important to develop a better understanding of how to effectively control these bacteria in drinking water.

This RAPID research project will provide the first direct assessment of inactivation of waterborne Elizabethkingia bacteria using chlorination, chloramination, ozonation, and ultraviolet (UV) irradiation. Specific objectives of the proposed work include the following. Characterize the disinfection response of: 1) planktonic cells, 2) attached cells, and 3) develop a deeper understanding of the relationship between disinfection efficacy and Elizabethkingia composition. Laboratory experiments will be used to establish concentration (or UV intensity) x time relationships (referred to as CT relationships). This disinfectant response data is currently unknown, and is urgently needed to develop effective disinfection strategies to curtail the current outbreak and avoid future public health disasters. Additionally, this project will probe the relationship between the bacteria's composition (nucleic and amino acids) and susceptibility to different modes of disinfection. The proposed research will substantially contribute to advancing broader societal outcomes including improved understanding of drinking water disinfection strategies to better protect human health, which has immediate implications for curtailing the ongoing outbreak caused by Elizabethkingia bacteria and for preventing future outbreaks. Findings from this project will also be integrated into course modules/discussions in the PIs regular teaching rotation, a summer experience for high school students, and at the Emerging Contaminants Short Course offered annually at Marquette University for academics and professionals.